From Counting to Calculus: The Institute for Curriculum Selection and Implementation in K-12 Mathematics Education

9617783 Mark An Institute for Curriculum Selection and Implementation in K-12 Mathematics Education is established by the Education Development Center (EDC). This institute helps districts shape their vision for a successful mathematics education program by providing services and products - workshops, resource guides and videos, and connections to other sources through the World Wide Web - to help facilitate discussions and decision making among the various stakeholders in the districts. Suitable materials are developed to facilitate implementation, including a guide to selecting a curriculum and case studies that examine abstract and complex issues regarding curriculum implementation in the context of real situations. Workshops are offered for school districts at EDC and at other sites around the country.